Molecular Analysis of the TMV-Movement Protein, A Virulence Factor

Plant viruses move throughout their hosts by unknown mechanisms that involve expression of one or more viral gene products. Since viruses that do not spread in their hosts are generally not pathogenic, the capacity for movement in the inoculated plant constitutes a virulence function. However, the nature of the protein(s) and the molecular and cellular mechanisms by which the proteins function are not yet determined. Recently this laboratory demonstrated that the 30 kDa protein of Tobacco Mosaic Virus (TMV) is responsible for potentiating cell-to-cell movement of TMV by using transgenic plants that constitutively express a chimeric gene encoding the 30 kDa protein. This excellent system will be used to: 1) purify and characterize the TMV-30 kDa protein (referred to here as the movement protein, MP); 2) to generate polyclonal antibodies against the TMV-MP; 3) to localize the MP in transgenic and TMV-infected tobacco plants; and 4) to genetically map the functional domains/amino acids of the MP by site directed and random mutagenesis of an infectious cloned cDNA of TMV, rescuing defective mutants on transgenic plants that express the MP. By characterizing the virus mutants that are defective in movement, as determined by ability to move in the transgenic plants that express the 30 kDa protein, the results of this research will lead to an understanding of the function of TMV-30 kDa protein in potentiating the movement of TMV in tobacco plants.